Calculus: Restructuring and Integration with Computing

Mathematicians of Dartmouth College will integrate computers into and plan the restructuring of the calculus curriculum. Their approach will emphasize elementary functions and use the computer for graphical displays and computation of tables of function values. Student written programs will be used to investigate these functions. Differentiation and integration will be taught by means of the difference calculus, making heavy use of the computer. These concepts will be used to solve "real- world" problems. It is expected that students will gain a deeper understanding of calculus concepts from the combination of theory, applications and computer investigations. During the four course calculus sequence, students will develop the capabilities of doing their own numerical and graphical investigations independently. Dartmouth will develop text and computer materials, demonstration programs and problems. Plans for the testing and evaluation of this new curriculum will be made during the planning grant. Dartmouth is financing one-third of the project.